Funding Arrangement for the US Civilian Research and Development Foundation for the Independent States of the Former Soviet Union (CDRF)

9531011 Raven This award provides initial funding to establish the new U.S. Civilian Research and Development Foundation for the independent States of the Former Soviet Union (CRDF). The CRDF is a nongovernmental, non-profit foundation to support collaborative basic research and collaborative applied research projects between American scientists and engineers and their counterparts in the 12 independent states of the former Soviet Union. The projects should enhance the conservation of the scientific and technological infrastructure in the countries concerned, promote defense conversion, and contribute to the transition to market-based economies. Fields of science and fields of application will be determined in consultations between the CRDF and counterparts in the former Soviet Union. CRDF is being established in accordance with the purposes of Section 511 of the FREEDOM Support Act of 1992. ***